Equipment to Teach Microprocessor Analysis of Video and Analog Signals in an Undergraduate Physiology Laboratory.

This project is improving the undergraduate program in experimental Physiology by introducing the use of video equipment and computer interface devices for data acquisition and analysis. Students are being exposed to three current methodologies: a video-image analysis system, an analog-digital converter system, and an x-y digitizing tablet. Microprocessors are being used to analyze the output from the three systems. The equipment is making it possible to introduce strikingly new laboratory exercises that improve both the accuracy and efficiency of data acqusition and analysis, and that give undergraduates hands-on experience with highly current research and analytical skills. The project is impacting students in eleven courses and in independent student research covering three subdisciplines: Animal Physiology, Plant Physiology, and Physiological Psychology.